Automated Test Equipment for the Measurement of Microelec- tronic Device Parameters

The Electrical Engineering Department at the University of Portland will acquire a Hewlett-Packard Semiconductor Parameter Analysis System and an associated Tektronix Programmable Instrumentation System. With this data acquisition system students will be able to characterize integrated circuits and extract and verify circuit parameters. To facilitate the computations the system will be connected with a VAX 11/750 computer in the Computer Aided Engineering laboratory. SUXES and SPICE software, both available on the VAX 11/750 computer, will be used in conjunction with this equipment. The equipment will first be used with commercially available IC's. In the near future special chips for this purpose will be developed. The instrumentation is part of a general effort to upgrade and automate the instrumentation in the Electrical Engineering laboratories, and is also a part of a planned development of a strong laboratory curriculum in microelectronics in the Electrical Engineering Department.